Applications of Stochastic Analysis and Control in Finance and Economics

The research project will follow two main directions:
(i). Principal-agent theory in continuous-time models with
applications to the optimal compensation of company executives
and fund managers. (ii). Numerical methods for high-dimensional optimization problems,
Backward Stochastic Differential Equations (BSDEs) and degenerate
Partial Differential Equations (PDEs), with applications in
Finance and Economics. The planned research will
make the theory of optimal contracts more compatible with the
modern, more complex continuous-time models for financial markets by
using several different methods of stochastic control and optimization:
partial differential equations approach, duality/martingale approach,
and the Forward-Backward Stochastic Differential Equation approach.
It is also planned to extend the theory to the following cases in which the
time of the payoff is not necessarily fixed in advance.
The second part of the project includes extending the work on finding
efficient numerical methods for solving high-dimensional stochastic
optimization problems, FBSDEs and degenerate PDEs, and to work on
the existence/uniqueness theory for FBSDEs. The standard numerical
PDE methods do not work in high-dimensions. Instead, these problems will
be approached with a combination of dynamic programming, Malliavin
Calculus, nonparametric regression methods, and existing numerical
methods for FBSDEs.

The first project is likely to have important applications to the question
of how to compensate company executives and fund managers in an optimal
way. The current practice for executive compensation is to grant
options as a part of the compensation package, but there is a lot of
recent discussion on whether this contributes
to the manipulation of the company's stock by the executives, and also how
these options should be accounted for in terms of the company's expenses.
The research will address these issues and provide some answers in
the framework of our mathematical models. In particular, anaysis will be conducted
on whether some other forms of compensation, such as deferred
options (as is about to be implemented by several large U.S. companies),
have advantages relative to the existing forms of compensation.
The second project is related to perhaps the
hardest practical problem in quantitative finance: to solve
high-dimensional optimization problems. The most famous example of
these is pricing high-dimensional American options.
The techniques that are commonly used today are not appropriate for more
complex and realistic models of security prices that are becoming a
standard, due to the increased sophistication of market practitioners.
Thus, it is important to explore new analytical and computational methods
for this task.